Workshops: Pathways to the Future

9629283 Billard ABSTRACT Support is provided for three Pathways to the Future workshops to be held in conjunction with the annual Joint Statistical Meetings in Anaheim in 1997, Dallas in 1998 and Baltimore in 1999. Since 1988 these workshops have assisted young women researchers in Statistics and Probability, providing a forum and a mentoring experience. A committee of alumnae and other senior researchers will assist in locating and contacting potential award recipients, with the goal being that every young woman researcher who wishes to participate should have the opportunity to do so.